Magnetosphere-Ionosphere Coupling and Space Weather Using the Magnetometer Array for Cusp and Cleft Studies

This proposal will continue the operation of and data processing for the magnetometer array across northern Canada namedMACCS (Magnetometer Array for Cusp and Cleft Studies). The array is jointly operated by Augsburg College and Boston University, with Augsburg taking responsibility for the four stations in the western half of the array. Scientific analysis of the data from the array is foucused on waves, currents and plasma flows associated with the cusp and cleft regions. Specific investigations will proposed include: determination of the source (cusp or mantle) of the broadband Pc 1-2 waves observed at very high latitudes using combined satellite and ground data; determine the source and generation mechanism for broadband Pc 3-4 waves; investigate SC events using very high latitude magnetometer data to further elucidate the global morphology of these events.